RIMI: Titanium Dioxide Catalyzed Photodegradation of Organophosphorous Compounds: A Kinetic and Mechanical Study

9550712 O'Shea The Ti02 catalyzed photodegradation of the organophosphorus compounds will be carefully monitored and evaluated to determine the kinetic parameters for the process. These kinetic parameters are of importance in evaluating and predicting overall rates and efficiencies for the degradation of organophosphorus compounds in multi-component systems and for reactor design. The mass balance between the initial substrates and the products formed during these reactions will be used to determine the degree of mineralization. Characterization of the reaction intermediates and products formed throughout the course of the degradation will be used to establish the course of the reactions. Hydroxyl radical, superoxide anion, and hydrogen peroxide are formed during the photocatalytic process, each species will be independently generated and the product distribution upon reaction with the simulants determined. The characteristic product distributions for hydroxyl radical, superoxide anion, and hydrogen peroxide will be compared to those observed for the Ti02 catalyzed photo-reactions to establish the role and involvement of these intermediates in the Ti02 catalyzed photodegradation. Since the solutions pH, dissolved oxygen concentration, and reaction byproducts can dramatically effect the degradation process, these factors will be thoroughly investigated. The use of additives to accelerate the process will also be evaluated. These studies will provide a fundamental understanding of the factors governing the chemical reactivity of organophosphorus compounds on photoexcited TiO2. The information obtained from the proposed investigations will find direct application in the optimization and evaluation of semiconductor catalyzed photooxidation as a means of detoxification of environmentally threatening organophosphorus compounds, such as chemical warfare agents and pesticides. If supported this project will have a substantial impact on the fundamental understa nding of the processes involved in TiO2 photocatalysis and the professional development of several minorities into the chemical and environmental sciences. One minority faculty member, 4-5 undergraduate students (three which currently plan to pursue a Ph.D. in Chemistry upon completion of their BS degrees) and 2 masters students will be directly involved in the proposed project. Support will increases minority participation in the PIs' laboratories by 50%. ***